Institute for Telecommunications Technologies

The Institute for Telecommunications Technologies (IT2), a regional partner of the National Center for Telecommunications Technologies (NCTT), develops a telecommunication and convergence technologies program in San Diego area. Working with the large telecommunications Industry in the area, the project establishes a hands-on teaching and learning telecommunications laboratory and a comprehensive curriculum that includes web-based learning modules and self-paced tutorials, and teacher education workshops. The project develops articulation agreements with feeder high school districts and partners with four-year colleges and universities in the San Diego area. To increase the representation of women in telecommunications technology, the project provides counseling and encouragement of high school women and student and faculty mentoring of women students along with a dedicated website.